Mathematical Sciences: Problems on Submanifolds and on Harmonic Maps

9404154 Chang The proposed research lies in the area of differential geometry, in particular, submanfiolds and harmonic maps. Five problems are proposed: classify isoparametric hypersurfaces in higher dimensional spheres with four distinct principal curvatures; find closed Riemannain n-manifolds of constant scalar curvature admitting isometric minimal immersions into the (n+1)-dimensional sphere; the third and fourth problems are about the uniqueness of minimal embedded tori in the 3-sphere and Euclidean 3- space respectively; the last problem is to classify those submanifolds of complex projective space whose normal bundles come with Hermitian-Einstein metrics. The problems considered have a classical origin; in particular, the study of minimal surfaces has an interesting history and remains an active area of research in mathematics. ***